Engineering Solutions and Policy Problems: The Oroville Hazardous Buildings Experience

This project will identify important lessons growing out of the experience the community of Oroville, California had following a damaging earthquake. On August 1, 1975, a moderate earthquake struck Oroville causing extensive damage to the older, unreinforced, masonry structures in the downtown area. Damage was severe enough to warrant condemnation of some buildings. The issue of abating the hazards arising from not only the damaged masonry buildings but also from all buildings of this class became a local policy issue. Eventually, proposals to do something about this problem failed. This study will focus on the policy history of hazardous-structures abatement in Oroville and will provide data for testing a model for identifying and explaining the key variables affecting local decision making regarding hazardous buildings.